CSHL Conference on the Genetics & Molecular Biology of Chlamydomonas May 1-4, 1988.

The "Conference on the Genetics and Molecular Biology of Chlamydomonas" will be held at Cold Spring Harbor. May 1-4, 1988. Chlamydomonas, a single-celled photosynthetic organism, serves as a model for higher plants. This meeting will bring together scientists asking different questions and with different approaches in an environment conducive to interactions.